U.S.-Chile Cooperative Research: Inclusive Charge-Exchange Reactions

9600417 Rapaport This Americas Program award will support a collaborative research project between Dr. Jacobo Rapaport, Ohio University, and Dr. Francisco Brieva, Universidad de Chile. The researchers intend to address basic issues related to the understanding of the reaction and excitation mechanisms in nucleon induced inclusive reactions. The purpose of the planned experiments is to provide high quality data on spin transfer for subsequent theoretical interpretation and analysis. The objectives are to develop a theoretical framework to interpret the data in terms of couplings between reaction and excitation mechanisms and to study the dependence on the nucleon-nucleon interaction. The experiment might eventually lead to a much more fundamental understanding of nuclear phenomena in terms of a microscopic theory. The microscopic understanding of simple nuclear phenomena relating to the structure and reaction degrees of freedom has been greatly enhanced in the last few years both from the experimental and theoretical approaches. However, there still exist important and troubling questions about how a nucleus responds to certain classes of external stimuli. The proposed experiments, to take place at the Indiana University Cyclotron Facility, should provide a complete set of data to test more deeply the different theoretical models. The group of the University of Chile will develop new theoretical calculations to explain the data by working on the development of a microscopic theory for reactions. They will then construct the codes for calculating the corresponding observables. The results of this collaborative effort could be a major contribution to the field of charge exchange in nuclear reactions. ***